Combined Research-Curriculum Development Program in Microstructure Systems and Micromechanics

9315420 Maclay This project is to develop and implement four new interdisciplinary courses in Microstructure Systems and Mechanics at the Junior/Senior/First year Graduate level. The courses will be modular in construction, and based on research advances made at the University of Illinois Chicago Circle or presented in critical reviews in literature. The student laboratories, which form a key part of the curriculum, would be based on a "problem solving" approach. The coarse modules will be available in hard copy or on CD/ROM. The curriculum will be developed with input from an Industrial Advisory Board and a faculty advisory group. The evaluation of the curriculum will be done by the procedure followed by the American Institute of Physics in their new physics curriculum evaluation.